International Travel to Attend the "First Latin American Congress on Ecology"; Montevideo, Uruguay; 10-17 December 1989

This award provides funding for fifteen United States ecologists to participate in the First Latin American Congress of Ecology (10-17 December 1989; Montevideo, Uruguay) and to present research results at selected Latin American universities. The field of ecology and the related disciplines of evolution and behavior are undergoing rapid change. At the same time, growing national recognition of the problems of climatic change, biodiversity, and pollution is producing pressure for ecologically-sensible solutions, suggesting an unusually favorable environment for research leading to environmental problem-solving in the United States. Unfortunately, the same is not true of Latin America. Devalued currencies and national debts have reduced the ability of ecologists to follow international developments at the same time that their contributions are most needed in addressing problems such as biodiversity, deforestation watershed protection, and pollution. Such ecologists often lack access to journals, libraries, or colleagues. There exists a need to increase the awareness of Latin American ecologists concerning recent developments in ecology and environmental science. Such awareness would have obvious benefits to their own countries, but it would also have direct and indirect benefits to the United States.